GEM: Ring Current and Radiation Belt Loss

This is a proposal to study loss processes for radiation belt and ring current particles. The theoretical study will investigate two processes, pitch angle scattering by ion cyclotron waves and non-adiabatic particle motion. The theoretical predictions will be compared with data from particle spectormeters on several satellites.